Mathematical Sciences: Differential and Integral Equations for Physical Systems

This project continues mathematical work on modeling, analysis and design of numerical algorithms for physical systems, the behavior of which is heavily influenced by non-local effects in time, space and both. Three classes of such systems are investigated. The first comprises viscoelastic and thermoelastic time-memory models, the second concerns interface problems arising in elastic and electromagnetic scattering by inhomogeneous obstacles, some of which involve non-local operators in space and time, while the third focuses on reaction- diffusion problems in population genetics with state-dependent diffusion velocity. A central theme of this research is a careful study of the strength of damping mechanisms induced by non-local effects and the influence of damping on well-posedness, including variational formulation techniques, asymptotic behavior, and approximation of non-local effects to facilitate easier implementation of numerical methods. The problems require the development of delicate analytical and numerical techniques coupled with a thorough understanding of the underlying physics. Some of this work builds on a recent paper in which the concept of steady-state power loss is introduced as a measure of the strength of damping for models with singular kernels. It is expected that this point of view will prove valuable in the study of global well-posedness and limiting behavior.